Polynomials and Exponential Sums: Extremal Problems, Density, Inequalities, and Zeros

Abstract

Polynomials pervade mathematics. Virtually every branch of mathematics,
from algebraic number theory and algebraic geometry to applied analysis,
Fourier analysis, and computer science, has its corpus of theory arising
from the study of polynomials. This project intends to study polynomial
inequalities and their applications in classical analysis, approximation
theory, orthogonal polynomials, and number theory. The proposed research
is about polynomials in a general sense, so it includes Chebyshev spaces,
Markov spaces, Descartes systems, Muntz polynomials, rational function
spaces, as well as polynomials with various constraints such as restricted
zeros, integer coefficients, and nonnegative coefficients in various bases.
The project continues several years of successful work on a variety of
topics and describes various new directions.

The polynomial is one of the most basic concepts of mathematics. Throughout
history people have found problems concerning polynomials especially fascinating.
Each of the ``three famous problems'' in the ``Heroic Age'' dealt with zeros of
polynomials: squaring the circle, duplicating the cube, and trisecting an
angle. Historically, questions relating to polynomials, for example, the solution
of polynomial equations, gave rise to some of the most important problems of
the day. Besides the natural intellectual interest in them, polynomials, and in
particular extremal problems involving polynomials, arise not only in
almost every field of mathematics, but also in other sciences, especially
in engineering. However, it is often the case that polynomials related to a practical
problem belong to a restricted class. Depending on the nature of the
problem, some additional pieces of information on the polynomial may be known.
For filter design, polynomials with coefficients from {-1,0,1} are very useful,
because, if they are used, then the filter can be implemented without
the use of multiplications; their implementation requires only additions
and subtractions. This reduces the cost of implementation. The problem is
to find such polynomials which have a ``lowpass'' behavior on the unit
circle of the complex plane. Roughly, that is, they approximate 1 in a
neighborhood of 1 and approximate 0 in a neighborhood of -1. The project plans
to study extremal properties of polynomials with coefficients from {-1,0,1}
{0,1}, and {-1,1}. Unimodular polynomials (when the coefficients are complex numbers
of modulus 1) are also important in engineering. In some other problems related
to physics, in particular electrostatics, information about the distribution of
the zeros of the polynomial is known. ``Gaped'' polynomials (polynomials
with a large number of zero coefficients) are used to analyze, for example,
the time-optimal boundary controls for the one-dimensional heat equation.
The proposal intends to explore further applications of polynomial inequalities
as well as to offer a systematic study of naturally arising questions regarding
polynomials subject to various constraints.